U.S.-China Cooperative Research: BTeV Calorimetry

INT-0223602
Stone

This is a 36 month project submitted by Dr. Sheldon Stone, Syracuse University, to cooperate with Professor CHEN Ting-Yang, Nanjing University, and Professors HE Mao and FENG CunFeng, Shangdong University, China, to carry out a U.S.-China cooperative project on BteV calorimetry. This is an excellent proposal for understanding the use of lead tungstate crystals for applications in calorimetry, and can contribute to the research and training interactions between high-energy physics groups in the U.S. and China. This proposal addresses an important scientific question and contributes to the NSF goals of human resource development. The National Science Foundation of China and NSF will jointly support this project.